Mathematical Sciences: Research Group in Banach Spaces and Related Areas

The purpose of this award is to support a conference at the University of Missouri on the interaction of Functional Analysis, Harmonic Analysis, and Probability Theory. Proceedings of the conference will be published. The core topic of the conference is Banach space theory, which is that part of mathematics that attempts to generalize to infinitely many dimensions the structure of 3-dimensional Euclidean (i.e.ordinary) space. The axioms for the distance function in a Banach space are more relaxed than those for Euclidean distance (For example, the "parallelogram law" is not required to hold.), and as a result, the "geometry" of a Banach space can be quite exotic. Much of the research in this area concerns studying the structure theory of Banach spaces.